REU Site: Summer Undergraduate Research Assistantship Program

9415573 Loui This Research Experiences for Undergraduates project will support eight to ten students per year in programs carried out during the Summers, for two years. Students will be involved in research projects across the interests of the department faculty, including AI and law, computer visualization, DNA mapping, medical informatics, distributed computing, neural networks, parallel architectures, and others. Students will be selected from institutions across the country based on selection criteria which include quality of background, research potential, diversity, and representation of underrepresented groups. Students will be matched to research professors based on faculty and students interests and prospects of success. The students will utilize all of the research facilities of the department including parallel processors, graphics systems, multimedia networking facilities, and the high-bandwidth switching network developed at the University. ***